CC*DNI Engineer: Cyber Infrastructure Engineer to Improve Research Effectiveness Across the University of Maine System

The Cyberinfrastructure (CI) Engineer at the University of Maine System improves the utilization of existing computational infrastructure provided by the Advanced Computing Group (ACG). This position promotes the use of advanced computing across all campuses of the University of Maine System through live seminars at each campus, short courses live-streamed to other campuses, and virtual office hours. The CI Engineer assists with data management throughout the data lifecycle, from proposal preparation through long term archiving. This includes best practices for data security and integrity as well as the utilization of different storage platforms for different performance needs. In addition, the CI engineer assists individual researchers in optimizing codes supporting individual research and inter-institutional collaborations.

The position supports the single university initiative by helping faculty, staff and students use existing cyberinfrastructure to collaborate across campuses. These activities provide the CI engineer with a better understanding of research needs, so he/she also provides a voice for users in the design of future ACG infrastructure. He/she also improves the efficiency of the University of Maine's K-12 outreach by providing special technical support for the ACG Outreach Coordinator.